NSF2026: EAGER: Spatio-Temporal Design of Techno-Ecological Synergies for a World without Waste and Resilient Landscapes

With support from the CBET/ENG Environmental Sustainability program and the NSF 2026 Fund Program in the Office of Integrated Activities, the investigators are researching the ecological capacity to provide goods and services in the face of demands imposed by a technological society. To meet sustainability goals, most engineers design and operate manufacturing processes to minimize resource use and emissions, but they may not account, for example, for the capacity of a watershed to provide fresh water to all users (including non-human users) or of the atmosphere to absorb emitted CO2. Similarly, economists may exclude consideration of the impact on ecosystems. The vision of this research is that through appropriate design, human activities can explicitly account for the provisions supplied by ecosystems, and can be designed to respect ecosystem limits. The research seeks to provide a framework for designing industries and ecosystems simultaneously to operate in a mutually beneficial or synergistic manner. The resulting Techno-Ecological Synergies (TES) will rely on designing ecosystems of the future, that in fundamental concept include the built environment, to enrich the NSF2026 Idea Machine winning entries of a "World without Waste," and "Large Landscape Resilience by Design."

TES design will be formulated as an optimization problem. Novel and innovative approaches for developing designs at relevant spatial and temporal scales are proposed for solving the optimization problem. One such innovation to be realized is the the development of physics-based surrogate models with deep neural networks to capture the spatio-temporal variation of pollutant concentration in a selected region for a point source under various geographical, land cover, and meteorological conditions, embracing uncertainty issues. Advanced and innovative stochastic and/or dynamic programming methods will be employed to obtain TES designs. As a test case, the developed TES approach will be applied to a power plant near Cincinnati and vegetation on the surrounding landscape. For this case study, conventional and TES designs will be compared in terms of their contribution to reducing waste at the landscape and life cycle scales. To assess large landscape resilience for conventional and TES designs, future climate change scenarios will be simulated and landscape resilience compared for conventional and TES designs in terms of regional water availability and air quality. This approach will assess the benefits of seeking synergies with nature through the TES framework. The results of this work are targeted to lay the foundation for further work toward the convergence of disciplines including ecology, sociology, economics, public policy, statistics, environmental science, and engineering. The aspiration of the TES approach is to see, with time, practical implementation of TES on the scale of industrial, urban, and agro-ecological landscape networks.